Development of a Full-Ocean Depth Moored Profiling System

The PI proposes a one-year development program to design, construct and dock-test a moored profiling instrument that will repeatedly profile a vertical water column. This prototype will test the feasibility of a system designed to continually profile to depths of 6000 meters and to obtain a time series temperature, salinity and current velocity. Such a system would provide valuable data at very low costs compared to the current shipboard data acquisition systems. The system could also be deployed in remote locations that are seldom traversed by oceanographic research vessels.